Studies of Structure and Conformation Using NMR Spectroscopyand X-Ray Crystallography

The proposed research consists of four parts, as follows: (1) NMR studies of cyclopropyl conjugation, for comparing the - donating abilities of the three-membered ring, double bond, and phenyl group; also studies expected to show that negatively-charged divalent phosphorus can be an effective -electron donor; (2) 2-D NMR studies of structure and dynamics for thioureas aimed at elucidating conformational equilibria and associative phenomena; (3) Synthesis and X-ray structural determination of novel organometallic compounds having two metal atoms joined by a ligand attached to one metal as a -arene ligand, and attached to the second ligand by a lone pair of electrons; (4) Formation of metal-carbon bonds on group 6 elements containing metal-oxo groups; the newly synthesized complexes are expected to show an interaction between the oxo and alkyl groups and a possibility exists of a transfer reaction of oxygen to an alkyl ligand. The four projects will make extensive use of NMR spectroscopy and X-ray crystallography. Multinuclear variable temperature one- and two-dimensional NMR experiments will allow analysis of exchange, structure and conformations of organic and organometallic compounds. In addition, the structure of the organometallic complexes synthesized will be determined by X-ray crystallography. The projects will provide minority students with experience in using both methods of assigning structure and conformation and in the study of chemical and magnetization exchange.//